High-Performance and System Integration for Symbolic and Numeric Computation

The first goal of this project is to develop and parallel algorithms for symbolic polynomial factorization. The past work on ``pfactor'' is extended, and parallel linear and quadratic p-lifting techniques are investigated. The second goal is to investigate the integration of numeric, symbolic, and graphic techniques. A distributed paradigm is devised to interface loosely coupled scientific and mathematical computation components. The vision is to develop scientific computation systems consisting of multiple autonomous compute servers running on different hosts. Each compute server in such a system supplies a single or a set of related services such as polynomial factorization, solution of linear or nonlinear equations, automatic code generation from symbolic programs, or graphic display of mathematical functions, just to name a few services.